RUI: Nuclear Reaction Studies at Low and Intermediate Energies

The nuclear physics research program at a predominantly undergraduate institution, Oberlin College, is supported by this grant. The investigator and his students will study the nuclear reactions and structure of light radioactive nuclei and stable lithium isotopes using facilities at the National Superconducting Cyclotron Laboratory and Notre Dame University.